Topics in Dynamical Systems: Attractors, Dimension, Lattice Model

Abstract.

The project outlines scientific activity in three directions. The first
is the theory of coupled map lattices (CML) where research is focused
on the thermodynamical limit for infinite-dimensional SRB measures
(in the sense of Sinai); stability of traveling wave solutions, and
transition from CMLs to PDEs via traveling waves.
It also includes the study of some well-known PDEs (for example,
Swift-Hohenberg equation which is of great interest in neurobiology).
The second direction is concerned with the dimension theory of dynamical
systems and includes the multifractal analysis of Birkhoff averages
with applications to some problems in number theory as well as
the multifractal rigidity phenomenon for conformal expanding maps.
The third direction of research deals with some recent advantages
in smooth ergodic theory. In particular, it is proposed to construct
some new examples of volume preserving diffeomorphisms
with non-zero Lyapunov exponents (on any Riemannian manifold and
with countable number of ergodic components). It is also proposed
to effect a multifractal formalism for two-dimensional hyperbolic
measures.

The main goal of the proposed research is to develop further the
mathematical theory of chaos. It deals with various aspects of
this theory including the appearance of chaotic motions in dynamical
systems (which are mathematical models of various phenomena in
physics, biology, economics, etc. ) and the interplay between chaotic
regimes and fractal geometric structure of the space. It is proposed
to study some macro-characteristics of chaotic behavior (such as
entropy and Lyapunov exponents) and relate them to fractal dimension
of the space. It is also proposed to construct some new examples of
chaotic systems both conservative and dissipative, finite-dimensional
as well as infinite-dimensional. These examples may serve as models
of such extremely complicated phenomena as turbulence in hydrodynamics,
neuron and memory activity in neuroscience, plant growth in plant biology, etc.